44th Annual Gaseous Electronics Conference; Albuquerque, New Mexico; October 22-25, 1991

The Forty-Fourth Annual Gaseous Electronics Conference, to be held at the University of New Mexico in Albuquerque, on October 22-25, 1991, provides a forum for investigators of the basic physics and chemistry of ionized gases and macroscopic gas discharge phenomena. It plays a significant role in interfacing basic science with related applications, emphasizing collisional, radiative and plasma processes that occur in electric discharges, arcs and gas lasers. The grant supports participant costs (notably for graduate students), publication and administration expenses.